ITR: ANTIDOTE: Adaptive Network of Robots for Threat and Intrusion Detection and Emergency Response

Abstract
0205336

This research pursues the development of a network of robots with cameras and
their optimal, dynamic positioning for monitoring a cluttered scene, under different conditions of visibility. The robots must discover their neighbors, localize
themselves with respect to their neighbors and integrate information with that
available from the other members of the team on the fly. Further this information
must allow a remotely located human operator to immerse herself in the
environment. The project addresses the development of enabling algorithms and
technology tailored to such applications as fire-fighting.